Presentation College Internet Connection Project

Presentation College, Lakota Campus requests support from NSF to connect it's campus to the Internet. The College, located on the Cheyenne River Sioux Indian Reservation in Eagle Butte, South Dakota. It has approximately 50 students enrolled in the associate or bachelor nursing degree programs. The college intends to connect to the Internet through IWAY, a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.